Orbital Spectral Mapping of Surface Compositions in the Antarctic Dry Valleys: Regional Distributions of Secondary Mineral-Phases as Climate Indicators

Abstract

This project uses Aster and Hyperion remote sensing data combined with field observations and laboratory analysis to map soils in the McMurdo Dry Valleys of Antarctica. The goal is to use mineral abundances, compositions, and spatial heterogeneities to investigate the connections between microclimate and surface characteristics. The valleys are one of the most unique landscapes on earth. The outcomes will be relevant to understanding their geologic, biologic, and climactic history, and offer insight into the Martian landscape. The main broader impacts are graduate education and curriculum development involving K12 teachers.